Hurricane and Earthquake Hazard Mitigation Policy Adoption in Charleston and South Carolina Following Hurricane Hugo

This project will focus on the public policy response to mitigate future devastating natural disasters, including earthquakes, resulting from Hurricane Hugo in the state of South Carolina and the city of Charleston. The objectives of the project are to: (1) identify significant components of the natural hazards public policy adoption process, (2) identify mitigation measures, and (3) develop a model identifying factors that impede or facilitate the adoption of specific mitigation measures. Project tasks include: (1.) identifying key influentials in Charleston and Columbia who are critical to the natural hazards mitigation adoption process; (2.) conducting interviews with key influentials; and (3.) constructing a model that can be used to predict policy adoption in the natural hazards arena.